CAREER: E-textile-based Wearable Computing for Sensing User Motions

CAREER: E-textile-based Wearable Computing for Sensing User Motions

Project Abstract

Ideally, a wearable computer should always be available to the user,
should not interfere with the user's movements, and should be invisible
to those around the user. Electronic textiles (e-textiles), an emerging
technology that blends fabric with electronics, has the potential to
meet these goals. Interconnections and components are an intrinsic
part of the cloth, enabling the creation of "smart" garments that have
the appearance and feel of normal clothing while providing sensing and
computing capabilities. This NSF CAREER project addresses the research issues involved
in designing e-textile garments that can sense their own shapes and
the positions of their sensing/processing elements. The major
outcome of the research component of this project will be a complete
e-textiles design framework that will permit e-textiles to function
robustly across a wide range of applications and the full spectrum of
the user population. The education component of this project integrates
e-textiles research into the classroom and develops novel educational
modules for improving the debugging skills of students based upon Kolb's
learning cycle and Felder's learning styles. The project's intellectual
merit is that it enables e-textiles to reach their full potential
for wearable computing, creating a better platform for existing wearable
computing applications and being an enabling platform for applications
that are not feasible with existing technology. The project also has
significant broader impact, by enabling novel applications in the areas
of health care for the elderly and people with disabilities, industry,
emergency response, and untethered motion tracking. The collaborative
nature of the project provides students with multidisciplinary research
experience, enhancing their contributions to the future growth of the
field. Finally, it is expected that e-textiles can help reinvigorate
the Virginia textile industry.